CONACyT: Research on Sets, Constraints and Preferences

9613703 This NSF-CONACyT collaborative research project is on very high level programming languages that will facilitate flexible ways of problem as well as query specification. The term "very high level" is used to mean a declarative (as opposed to a conventional, procedural) language, in which the emphasis is on what a program should compute rather than on the details of how the computation should be carried out. The focus of the research is on sets, which are central in applications of database query languages and logical specifications of problems. While previous research has laid the foundations for a set-oriented declarative language, the new research will expand the paradigm with two important capabilities: constraints and preferences. In this programming paradigm, a user can specify the mandatory requirements (or constraints) of a problem and also the optional requirements (or preferences) that guide the search for optimal solutions. In considering how to formulate preferences based upon aggregate values, the research will examine how to integrate sets, constraints, and preferences. The proposed research covers design and implementation issues, as well as applications, and will be carried out in collaboration with Professor Mauricio Osorio, at the Universidad de las Americas, Puebla, Mexico. ***